Mathematical Sciences: Geometry of Singularities

In recent years several important advances have been made in the theory of singularities of complex analytic spaces and mappings: introduction of local polar varieties (by Le Dung Trang and Teissier), existence of a canonical Whitney stratification (by Teissier), topological characterization of Whitney stratifications (by Le Dung Trang and Teissier), Morse theory on singular spaces (by Goresky and MacPherson), structure of the tangent spaces at singular points (by Le Dung Trang and Teissier), Hodge theory on singular spaces (by Steenbrink, Zucker, Varchenko, Saito), its relation with the study of linear differential systems via the Riemann-Hilbert correspondence (by Mebkhout, Kashiwara, Kawai), triangulation of stable maps (Verona). These advances give new tools to investigate systematically basic problems in the theory of singularities. Gaffney and Le will investigate the following problems: (1) The problem of equisingularity of families of mappings, e.g. the problem of finding algebraic invariants to determine if a family of mappings is topologically trivial. The concept was introduced by Zariski for spaces and it was shown by Le and Ramanujam that the constancy of the Milnor number gives the topological equisingularity of a family of complex hypersurfaces. (2) The relative Lefschetz Theorem on hyperplane sections for maps from singular spaces into Pn. (3) The canonical decomposition of the local monodromy of complex hypersurfaces and its link with the resolution of singularities and the geometry of Polars. (4) The conormal structure and higher order conormal structure of singular spaces: this should lead to results on the geometry of linear differential systems. Furthermore, the techniques involved are quite effective, and the investigators hope to be able to use existing software to implement algorithms to determine the shape and the topology of complex analytic singularities.